Ocean Wave Facility

Equipment to complete a three-dimensional ocean wave simulation facility is to be acquired and utilized in a broadly based research program on ocean wave dynamics and wave interaction with structures and boundaries. Electronic systems and controls for the wave generation device will be the focus of this phase of the ongoing research program.